Integrating a Multi-Interface, Multi-Access Online Communication & Information System (SGER)

9353801 Graham "Integrating a Multi-Interface, Multi-Access Online Communications And Information System" , submitted under the program for Small Grants for Experimental Research (SGER), is a project which attempts to provide a mechanism to incorporate a client-server conferencing capability to Internet interfacing software for the science and mathematics education community. To accomplish this task, it is necessary to perform research and experimentation on several graphical client-servers and to investigate methods of integrating the software across the DOS, Windows, and Macintosh platforms. The major outcome of this project will be a body of research which software developers can refer to in their attempts to build effective Internet conferencing tools. ***